Proposal for Partial Support of the 2nd International Workshop on Particle Physics and the Early Universe-COSMO-98 November 15-20, 1998

***
9802559
Caldwell
The COSMO series of conferences cover work at the boundaries of particle physics and of cosmology. This is an exciting field in which many recent discoveries have been made-including the new result indicating that neutrinos have mass. This conference will be attended by scientists from all over the world and this grant will enable several students to participate in the meeting.
***